Direct Simulation of Planetary System Formation

Lake, George
University of Washington
AST 99-73209

Drs. Lake and Quinn will directly simulate terrestrial planet formation from a 3D disk of planetesimals with sizes comparable to asteroids. Their models will have much greater spatial and temporal resolution than previous simulations and will use state of the art algorithms and processing. With such simulations, they will address fundamental questions regarding the formation of planetary systems, among them the primordial mass distribution, the extent of radial mixing in the disk, the cause of mass depletion in the asteroid belt, the likelihood that the Moon was formed by a late massive impact, and the role of giant planets in terrestrial planet formation.